Modeling Speech Production: Formant and Articulatory Speech Synthesis

9215331 Childers This is the second year of a three year continuing award to investigate three major topics in the area of speech synthesis. The first deals with improving the resolution of existing models of several voice types such as modal register, vocal fry, falsetto, and breathy, and extending them to additional types such as hoarse and harsh. These models will be used to investigate the relation between voice production features and aspects of the acoustic signal through the use of interactive, high quality, formant speech synthesis. The second aspect of the research deals with refining the articulatory speech synthesizer to allow the models of voice types to be related to speech production physiology, e.g., articulator position and movement, and vocal fold vibration motion. The third aspect is to develop quantitative measures of speech quality and vocal function. Anticipated areas of exploration include the quantification of glottal flow waveform and its spectral characteristics corresponding to variations in vocal quality. Additionally, the vocal fold mass and length, the aperiodicity of the vocal fold motion, and the glottal area will be related to aspects of vocal quality. A unique characteristic of the models developed is their interactivity, that allows the user to adjust features of the models related to physiological characteristics of the speech production process. This allows the user of the model to test new hypotheses related to voice production by adjusting parameters in the model. Two possible areas of application are the development to training aids for the hearing impaired and the design of speech codes based on articulatory movements.